Investigation of Mid Paleozoic Apparent Polar Wander for North America and the Influence of Major Orogenic Events

Paleozoic plate reconstructions rely on apparent polar wander paths for continental blocks as determined by paleo- magnetic records from strata in stable cratonic areas. By comparison of paleomagnetic records from different blocks, latitudinal separations can be determined. Currently, due to the widespread presence of younger overprints, a large and tectonically important gap exists in the mid Paleozoic APWP record of the Early and Middle Devonian of North America. To fill this gap and to avoid overprints (commonly associated with magnetite), a sampling program for fossiliferous limestones and red dolomites that outcrop between Iowa and the Northwest Territories of Canada will be conducted. Results should help establish a reliable APWP for cratonic North America for this interval.